Semantics and Types for Imperative Languages

The semantic foundations of imperative languages shall be studied in this project with the aim of sharpening the understanding of how state can be utilized. Local variables and interference control will be emphasized in this study. Denotational models for local variables will be investigated and the connections between locality and parametricity will be explored. In addition, type systems which control the manner in which the state is utilized will be developed. This work is intended to lead toward programming frameworks which support the flexibility and efficiency of imperative programming and the simplicity and elegance of functional programming as well.